RI: Small: Statistical Machine Translation Through a Tree Adjoining Grammar with Flexible Parsing Operations

Our research involves the development of a syntactic approach for
statistical machine translation that extends a tree adjoining grammar
(TAG) formalism to the translation problem, and frames translation
directly as a parsing problem. The model imposes no constraints on
entries in the phrasal lexicon, thereby retaining the flexible lexical
entries of phrase-based translation systems; it allows straightforward
incorporation of a syntactic language model. The operations used to
combine tree fragments into a complete parse tree are generalizations
of standard parsing operations found in TAG; specifically, they are
modified to be highly flexible, potentially allowing any possible
permutation (reordering) of the initial fragments. This allows the
model a great deal of freedom in capturing differences in word order
between source and target languages.

The use of flexible parsing operations raises a couple of challenges
that are a major focus of our research. First, efficient decoding
algorithms are required for the models. Second, flexible parsing
operations allow the model to capture complex reordering phenomena,
but in addition introduce many spurious possibilities. We are
investigating the use of learned, probabilistic constraints based on
information in the source-language sentence, or in a parse tree for
the source-language sentence, thereby incorporating syntactic
information from the source language.

The end goal of the project is to develop new models for translation
that improve the fluency or grammaticality of translations, improve
the degree to which semantic information (e.g., predicate-argument
structure) is preserved in translation, and improve the treatment of
differing word orders between source and target languages.